Study of the Interaction Between Gene Flow and Selection in a Test System

9305897 Riechert This research project is concerned with an important evolutionary question---the degree to which population mixing can limit adaptation. Resolution of this question is important to the maintenance of biodiversity and the conservation of rare and endangered species. The study will be completed on a desert spider system which shows evidence of high levels of mating between populations that inhabit markedly different selective environments (i.e., abundant prey and high predation vs low prey and low predation). Interpopulation mixing (gene flow) and selection (predation pressure by birds) will be manipulated in a series of experiments to investigate the nature of the interaction between them. Transplant experiments will also be completed to determine the degree to which different behavior types from the respective populations suffer when introduced to a foreign habitat. The movement and assortative mating patterns of the different behavioral types recorded in the study will be quantitatively compared with the predictions of an individual-based simulation model of the system.%%% Spiders, by their nature, have proven to be excellent tools for study of this and other ecological and evolutionary problems. They are readily and adequately sampled because they are present in large numbers and are not disturbed by the human observer. They also can be easily manipulated without disruption of their "natural" behavior. This is a major problem when using the higher animals. Finally, spiders perform many of the behaviors and exhibit adaptations characteristic of these higher animals, but in a less complex, and thus, more analyzable form. It is from model systems such as this one, that science has traditionally drawn to unravel the most complex mysteries of the biotic universe.***